RUI: A VLSI Arithmetic Data Path for a Complex Number Digital Signal Processor

This project deals with the design and implementation of VLSI algorithms and circuits for arithmetic operations on complex numbers. The research is motivated by the need for these circuits in high-speed digital signal processing applications. The goals of the research are to: 1. Develop VLSI design algorithms for the arithmetic data path of complex number digital signal processors. 2. Design and implement VLSI circuits and components for the developed algorithms, with emphasis on both architecture and circuit design. 3. Study the trade-off between chip area and VLSI circuit latency/throughput and to develop a design curve exhibiting their trade-offs for benchmark complex number applications. 4. Specify other data path components for the complex number digital signal processor to support high-throughput input/output operations and ease of programming.